Eclogites in the Yukon-Tanana Terrane, Canadian Cordillera: Subduction Erosion of the Overriding Plate?

Over half of the active subduction zones on Earth are eroding in a process whereby pieces of the overriding plate are removed and transported down the subduction channel. Subduction erosion is very difficult to recognize in the rock record, but eclogite-bearing continental crust from the Yukon-Tanana arc terrane in the Canadian Cordillera is a good candidate. Locally well-exposed, high-pressure rock units of the Yukon-Tanana arc are being studied to establish the possible settings for eclogite formation. The ultimate goal of this project is to advance our understanding of processes that occur along the interface between the subducting slab and the overriding plate in collisional orogens. The specific goals are to identify the genealogy, metamorphic evolution and tectonic setting of the coherent eclogites and their host rocks, as opposed to mélanges, in Yukon-Tanana; and to evaluate the results in terms of plausible models for subduction and exhumation channels. Detailed mapping is an essential part of the project; the crux of the problem is to demonstrate shared metamorphic histories for the eclogites and their host rocks. Quantitative mineral chemistry and zoning data collected on the electron microprobe at Rensselaer Polytechnic Institute are being combined with the results of phase equilibrium modeling to produce detailed pressure-temperature paths. U-Pb geochronology utilizing the USGS-Stanford sensitive high-resolution ion microprobe (SHRIMP) yields zircon, titanite and monazite ages that are then linked to various points along the subduction and exhumation path. Models for eclogite formation via subduction erosion will be evaluated in light of the results. Our proposed idea that the eclogites in Yukon-Tanana terrane formed via subduction erosion challenges the assumptions that all high-pressure metamorphism forms in the subducting plate and that subduction polarity in accreted terranes can be deduced from the mere presence of eclogites.

Our collaboration involves contributions from researchers from the United States, Canada, and German, and involves important scientific and logistical support from the Canadian Geological Survey and Yukon Geological Survey. The research results directly pertain to the EDGES project, a collaborative effort among the federal, state and provincial geological surveys of Canada to enhance mineral resource exploration by understanding the terranes of the northern Cordillera of North America. The project is providing important training opportunities for graduate and undergraduate students at the University of Iowa in a STEM discipline, is contributing to the broadening of underrepresented groups in science, and is providing outreach efforts for K-12 students through the University of Iowa's Natural History Museum.